Formal and Empirical Analyses of Bureaucratic Delay: The Case of FDA Drug Review

Why do bureaucrats delay? Why do regulatory choices made under identical
administrative procedures exhibit highly varying decision times? The
investigator conducts a formal and empirical analysis of the duration of
bureaucratic decisions, with applications to drug approval times by the
U.S. Food and Drug Administration (FDA). The speed with which drugs are
reviewed is now one of the most controversial issues in federal regulation,
and is arguably the most salient case where the duration, more than the
content, of bureaucratic decision making is at issue. While the political
control of agencies has been well studied, relatively little is known about
why agencies wait, and whether the duration of agency decisions is subject
to political control and from what sources.

The project tackles this problem through the elaboration of a
generalizable formal model of the approval decision. The investigator models
product approval as an optimal stopping decision by an uncertain
regulator subject to political demand for the drug. The regulator seeks to
preserve a reputation for consumer protection and sees drug approvals as
irreversible (or reversible only at a significant reputation cost). The
payoff of approval is also a function of the political "demand" for drug
approvals from consumers (patients) and producers (firms). The model
predicts that even under risk-neutrality, quick approvals are highly
unlikely, not all drugs will be approved, and that larger firms receive
"protection" (quicker approvals) even when firms are not politically
organized.

The investigator tests this model using maximum likelihood
duration analyses of FDA drug review times. The formal model suggests that
the proper hazard function for estimation is the inverse Gaussian
distribution, which has a non-monotonic hazard function. Drug approval
times will be modeled as a function of political preferences, budgetary
shifts, media coverage and congressional hearings on the diseases treated
by the drug, and characteristics of the submitting firms. Preliminary
results on a partial sample of 67 drugs approved from 1985 to 1995 support
the model's predictions, and also suggest that political "control" in drug
approval occurs less through "principals" (Congress and the presidents)
than through organized interests (patients and firms) and the media.